Research Initiation: Sensitivity Analysis Approach in the Absence of an Optimal Basis and its Application to the Framework of Interior Point Methods

This project addresses the design, development, and implementation of a new approach to sensitivity analysis in the context of linear programming (LP) that does not require the knowledge of an optimal basis. The main application of this sensitivity analysis approach is in the context of interior point methods. Range analysis is the main emphasis of this research project. Parametric analysis is also discussed and serves to motivate the approach to range analysis. The approach is based on a new view of the parametric linear programming problem developed by Adler and Monteiro. A new interpretation for ranges of the cost and right hand side coefficients is given and it is shown that the computation of the ranges for the LP problem reduces to the estimation of optimal values of certain LP subproblems. Two major tasks are involved in this research. The first is to understand the affect of degeneracy. The second is to develop efficient ways of estimating the optimal values for the subproblems. This project promises to enhance (and possibly change) our understanding of LP sensitivity analysis.